Purchase of a Single Crystal X-Ray Diffraction System

Single crystal x-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal x-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the intermolecular composition and structure helps to develop new reactions of potentially general interest in catalysis or organic synthesis. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry and the University of North Carolina in Chapel Hill to acquire a Single Crystal X-Ray Diffraction System. Among the areas of chemical research that will be enhanced by the acquisition are the following: 1. Studies of Metal Oxo Complexes 2. Synthesis, Reactivity, and Spectroscopy of Copper Complexes 3. Phase Transitions in Linear Chain Compounds 4. Metallophosphine and Metalloarsine Compounds 5. Organic Transformation of Coordinated Ligands 6. Organometallic Chemistry